Workshop on Research Needs and Opportunities in High Temperature Superconductivity; Copper Mountain, Colorado; August 19 - 20, 1991

This proposal requests funds to hold a workshop on research needs and opportunities in high temperature superconductivity. The objectives of the workshop are threefold, to: 1) identify the barriers that may limit the developmental progress in high temperature superconductivity, 2) assess research areas that are particularly ripe for important advances, and 3) investigate interagency collaborative research projects that utilize existing large research facilities.